Mathematical Problems from Materials Science

This project addresses several topics at the
interface between mathematics, physics, and
materials science. One theme is epitaxial
growth, particularly the task of linking
microscopic and macroscopic descriptions of
growth. A second theme is the interaction
of bulk and surface energies, which determine
the structure of defects and the selection of
patterns in diverse systems such as stressed
films and dielectric fluids. A third theme is
the analysis of composite microstructure, where
methods developed for image processing seem to
offer fresh opportunities.

Materials have structure on many length scales.
The tasks of (a) predicting this structure,
and (b) understanding its consequences, are among
the major challenges of modern materials science.
Mathematical methods such as homogenization,
asymptotic analysis, and multiresolution methods
can help. This project will develop and apply such
methods in the context of specific material systems,
leading to enhanced understanding of those systems
and improvement of the mathematical methods themselves